Collaborative Research: P2C2--Locally-Constrained Climate Field Reconstructions of the Last Millennium: Methods and Application

Funds are provided to improve the output from climate field reconstructions (CFRs) by using reduced space optimal interpolation (RSOI), which requires climate proxies to be locally calibrated as opposed to most current approaches which use with non-local calibration.

The researchers will analyze the currently employed non-local multivariate CFR methods and test RSOI-derived CFRs using locally-calibrated proxies. Results will be compared and contrasted both empirically and theoretically and will be used to reduce the uncertainty in estimates of millennial climate variability and produce better estimates of the spatial and temporal variability of climate.

The research has broad appeal to the wider science and policy making communities in that it is attempting to improve the quantitative nature of climate reconstructions.